Purchase of Computational Chemistry Hardware

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will help the Department of Chemistry at Iowa State University to purchase two eight node SMP computers and an experimental cluster of eight microcomputers. This equipment will enhance research in a variety of areas including quantum chemistry, surface chemistry simulations, sulfur photochemistry, solid state chemistry of intermetallic compounds, and high resolution photoionization-photoelectron-photodissociation studies. A network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a `computer network` also serves as a development environment for new theoretical codes and algorithms, provides graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.